Hazardous Materials Releases and Associated Emergency Response Efforts in the Turkey Earthquake of August 17, 1999: Implications for Future Risk Management Planning

CMS-0085265
Steinberg

The August 1999 Turkish earthquake offers a unique opportunity to study how hazardous materials releases may be triggered by earthquakes. In this project, Turkish industrial facilities will be surveyed to learn what types of hazardous materials released occurred and what types of mitigation and emergency response measures were effective. The data will be tabulated and hazard assessment methods employed to describe the series of events, which led to these releases. Recommendations for making the U.S. and Turkish hazardous material management plans and emergency response procedures more responsive to the particular needs generated by joint natural and technological disasters will be offered.